Structural Dynamics by Multiple Scale Analysis

*** 9503117 Liu Multiple scale methods, which are based on reproducing kernel and wavelet analysis, will be developed. These permit the response of a system to be separated into different scales. These scales can either be the wave numbers corresponding to spatial variables or the frequencies corresponding to temporal variables; and each scale response can be examined separately. This complete characterization of the unknown response will be performed through the integral window transform; and a space-scale and time-frequency localization process is achieved by dilating the flexible multiple scale window function. These developed methods will be applied to nonlinear dynamics of structures in particular emphasize on fluid-structure interaction.***